HDR DSC: National Data Mine Network

The data science community has a timely opportunity to reimagine the impact of the data sciences on the economy, and to improve outcomes for communities, by ensuring that students at Minority Serving Institutions have access to cutting edge courses, research opportunities, and industry partnerships. In 2018, Purdue University established The Data Mine, a university-wide undergraduate learning community that teaches data science to participating undergraduates from all majors, regardless of their previous experience. It will scale naturally to a nationwide model because it is accessible, supportive, but also offers genuine data science challenges that motivate students to learn the required competencies. The National Data Mine Network (NDMN) will directly fund 300 undergraduate students at Minority Serving Institutions with research stipends (100 stipends per year), administered directly to students by the American Statistical Association. The leadership team leverages collaborative strengths of the American Statistical Association, the Math Alliance, Purdue University, American University, and the Atlanta University Center Data Science Initiative. The students will use high-performance computing to solve data-driven challenges that arise in every sector of industry, including biomedical engineering, healthcare engineering, image processing, manufacturing, supply chain management, and transportation.

This project will enable undergraduate students to learn data science with hands-on work, in research or data science projects informed by industry partners. Each participating institution will have a node led by faculty members and 3-4 undergraduate students. All faculty members will share their best practices about mentoring research, how to establish mutually beneficial relationships with industry partners in their community, and how to develop institutional mechanics to support the work and to build data science programs. Some of the key deliverables of this HDR DSC project will be: well-documented projects for courses and for student research, a robust online training resource of data science projects, an instructor handbook that accompanies the data science projects, a development curriculum for the faculty to grow their own skills, and promising best practices on how faculty can develop relationships with mentors from industry for real-world data-driven projects. A key benefit of the NDMN to faculty is the ability to inject data science skills into their careers, to gain knowledge and expertise about how to carry out hands-on, data-intensive research projects, as well as the potential to develop new industry partnerships, while also building their own data science courses and programs. Another key impact will be a tightly knit community supporting a new generation of 300 diverse undergraduate trainees in the data sciences. A third key impact will be a nationwide network of faculty who work together to build these data science courses, programs, and industry partnerships at Minority Serving Institutions.